CAREER: Towards Identifying and Eliminating Exploitable Software Bugs

Attackers only need to find a single exploitable bug in order to
install malware, bots, and viruses on a vulnerable user's computer.
Unfortunately, bugs are plentiful. For example, the Ubuntu Linux
distribution bug management database currently lists over 58,000 open
bugs. Thus, the question is not whether an attacker can find a bug,
but which bugs an attacker can exploit.

This research investigates novel techniques, approaches, and
algorithms for finding exploitable bugs. The ability to deterimine
whether a bug is exploitable or not will allow developers to
prioritize bug reports so that the most security-critical bugs are
fixed first. The techniques investigated will also help developers
distribute patches safely.